PLANNING GRANT for Leadership Institute to Integrate Mathematics-Science-Technology Education

This project, sponsored by the Midland County (Michigan) Intermediate School District, will carry out a planning program whose objective is to determine how the schools in the 24 K-12 public school districts of the Saginaw Bay Education Consortium will bring about substantial change. The result of the planning process will be the submission of a proposal to the National Science Foundation which will indicate how a new integrated curriculum in science, mathematics and technology will be implemented how teachers will be prepared to teach it and how its effectiveness will be assessed. The matching funds from the school district and the private sector around to about 273% of ont NSF grant.